Symposium on: New Perspectives on the Origin and Evolution of New World Domesticated Plants, Davis, CA; 14-18 August, 1988

Funds are requested to defray costs of bringing selected speakers to a symposium on the evolution and systematics of New World domesticated plants. The objectives are to integrate current work on genetic changes in domesticates and to re-examine angiosperm evolution in light of new information from molecular studies.